Atmospheric Aerosols in Polluted, Nonurban, Nonagricultural Settings

9510379 Eldering This is an award to support preliminary research on the factors that influence the nature of aerosol particulates in air that negatively affect its quality. The proposal leading to this award was submitted in response to NSF 93-130, Research Planning Grants and Career Advancement Awards for Women Scientists and Engineers. The investigator has selected the region surrounding Pocatello, Idaho as the site for this planning study. Its objective is to utilize results of an air quality sampling program as a step toward determining the feasibility of formulating mathematical models that can be used in the engineering design of pollution abatement and mitigation measures. The intensive sampling program will be conducted in cooperation with the Southeastern Idaho Air Pollution Control Office. An understanding of the sources of air pollutants and conditions that affect their movement is necessary in the formulation of mathematical models that can be used in the engineering design of abatement procedures. This project is expected to assist in determination of the need for and feasibility of a long-term sampling program that would reveal annual variations in sources, chemical composition and size distribution of aerosol particulates in regions with significant particulate air quality problems. ***